Model Reference Current Injection: A High-Speed Next-Generation Dynamic Clamp

Abstract Butera

The "dynamic-clamp" is an electrophysiological technique developed in the
past decade that utilizes real-time voltage-measurements from electrically
excitable cells, such as neurons and cardiac myocytes. These measurements
are used by a computational model running in real-time to compute artificial
ionic currents that are injected into (the same or another) excitable cells.
Applications of this technique include augmenting the intrinsic electrical
properties of a single cell or using the computer to connect isolated cells
to create an artificial network consisting of real neurons and computed
synapses. This approach has seen growing use in the neuroscience and
cardiac electrophysiology communities. However, the technique is nontrivial
to implement and off-the-shelf (turnkey) approaches have not kept pace with
rapidly changing computing technologies. Furthermore, although many
laboratories have used this technique, little research has been done to
evaulate its accuracy and validity.

The objective of this application is to develop a next-generation system
that implements the dynamic-clamp tecnique and utilizes currently avaiable
computing technologies. This technique will be low-cost, using computers
and electrophysiolgical hardware available in most neurophysiological
laboratories; fully-featured, allowing for very high speeds (with a goal of
100 kHz), arbitrary model specifications, and real-time data logging on the
control computer; and open-source, meaning that the software and operating
system upon which it is based are freely distributable and freely modifiable
to suit a laboratory's specific needs. Conventional desktop operating
systems are unsuitable for real-time performance in the 10's of kHz range,
thus this project will use Real-Time Linux, a derivative of the Linux
operating system modified for performing real-time tasks, to achieve these
goals. The specific objectives of this project are to develop a core
real-time control computational engine based on Real-Time Linux, develop a
user interface and mechanism for arbitrary model specification, and perform
rigorous testing of the accuracy and validity of the technique.

This technology will impact the neuroscience and electrophysiology fields of
research in several ways. First, it will make the technique available to
more researchers, with a greater array of features available. Second, the
increased speed of this approach will allow new experiments to be performed
using the dynamic clamp, such as those involving membrane processes with
submillisecond time-constants, such as sodium currents in cardiac myocytes
and synaptic currents from fast AMPA synapses.